CEDAR: Analysis of CEDAR Auroral and Airglow Data

The PIs propose to perform detailed analyses of comprehensive optical and radar measurements obtained during CEDAR campaigns at Sondre Stromfjord. The project's major goals are to elucidate long-term trends and short-term fluctuations in auroral zone neutral composition in response to auroral energy deposition. Current problems in understanding thermopheric photochemistry will be investigated, along with analysis of data using the auroral electron, photoelectron, photochemistry, and spectral synthesis codes.